SBIR Phase I: Low-Cost Hydrogen from Organic Wastes

This Small Business Innovation Research Phase I project will determine the feasibility of a process for producing pure hydrogen and electricity at low cost from the oxidation of organic wastes. This program will measure oxidation and eduction properties of the chemistry, efficiencies of oxidation for model organic materials, and effects of other species. This should result in the identification of an effective chemistry and establishment of the technical and economic feasibility of the proposed process.
Commercial application of the process will result in lower pure hydrogen costs, increased energy efficiency, lower fossil fuel use, pollution prevention, reduced greenhouse gas emissions, and a safer environment.